Modernization of the General Chemistry Laboratory by Integration of Computer-Based Experiments

The Chemistry Department at Eastern Michigan University has recently acquired twenty four microsprocessors together with sufficient software so that computer-based experiments can be integrated into the general chemistry laboratory. The applications of computers being introduced include interfacing to instrument/sensors for instrument control and data acquisition, simulating inaccessible experiments and atomic-level phenomena, and exploring a chemical database and mathematical models. Utilization of the computers in the laboratory will be continued as students proceed to upper-level courses.